Novel Analytical and Computational Studies in Collisionless Plasma Dynamics

9423583 Crawford The proposed project involves theoretical and numerical studies of ideal plasmas. The research concentrates on numerical algorithms to solve the Vlasov equation, short time scale dynamical studies of instabilities and the nonlinear dynamics of coherent lineraly unstable waves. ***